Mathematical Sciences: Differential Geometry of Real and Complex Manifolds

9321283 Wu The research projects are in the general area of several complex variables and Riemannian geometry. The main focus will be on classes of holomorphic symmetric 2-tensor fields called holmets. These can be used to study the analytic and geometric properties of complex manifolds, in particular, embedded submanifolds of complex Euclidean spaces. Other topics proposed entail curvature properties of bounded domains in complex spaces. This research has potential applications to algebraic geometry and complex analysis. ***